Synthesis of Biodegradable Antifoul Marine Coatings

It is proposed to synthesize film forming biodegradable polymers, specifically a series of polylactic and polyglycolic acid copolymers, to serve as primary vehicles for anti-foul marine coatings. The coatings are non-metal containing films which will controllably react with sea water at the desired rate to continuously provide a new surface for further erosion. The products of the degradation will provide a localized pH unfavorable to barnacle and weed attachment while not producing pollutants or biological toxins. Additionally the polymers exhibit excellent abrasion and oil resistance. "In vitro" and "vivo" testing of coated panels in synthetic and natural sea water should clearly establish the commercial potential and provide the necessary data for optimization and scale-up of the polymer synthesis in a follow up study. Based upon current consumption of anti-foul coatings, approx. 1.5 x 10(8) pounds of copper and tin are introduced into the world's waterways annually creating significant environmental problems manifested by polluted harbors and endangered marine life. Our proposed coatings will allow protection of ships hulls but will not pollute the oceans. The potential market is worldwide.